A Fluid Dynamical Study of Pulsating Behavior in Volcanic Systems

0000454
Brodsky

Pulsating behavior in volcanic systems is ubiquitous and physically significant for understanding the force balance of eruptive processes. The PI will carry out a systematic study of oscillations over a wide range of frequencies using the analytical and numerical tools of fluid mechanics. The goal is to formulate a set of criteria by which specific mechanisms or classes of mechanisms can be associated with documented observations.